Complexing Effects of Forest Litter Ligands on Aluminum Dissolved from Soil by Acid Deposition on Forested Drainage Basins

The objective of this project is to quantify and determine the stability of aluminum-organic complexes that can occur in water draining from forested drainage basins that are impacted by acid deposition. Water-soluble organic compounds derived from forest canopy litter can play a critical role in the mobilization of aluminum in forest soils, but relatively little is known concerning their complexes with aluminum. In this project, a systematic investigation of these complexes is being undertaken involving studies of the acid-base chemistry of water-soluble forest leaf litter; studies of aluminum complexes with leaf litter ligands using infrared, electron spin resonance, and fluorescence excitation spectroscopy; comparative, quantitative studies of aluminum-leaf litter complexes with compleximetric and fluorimetric methods, and calculation of pH-independent stability constants for aluminum-leaf litter ligand complexes. The chemical speciation of aluminum in natural waters has emerged as a problem of critical importance because of the effect that acidic deposition from atmospheric pollutants has on solution of aluminum compounds in soil, and the impact of those compounds on water quality. This research may lead to insights into how water may be decontaminated by proper engineering design and management of drainage basins.